CMN Initiation Project: Investing in the Future

There are three project objectives that will be achieved during the proposed project timeframe. Five years of anticipated program funding are essential to research the impact of project strategies on STEM student retention, graduation, and transfer rates. The project objectives are as follows: 1.) By September 2015, to increase the number of students majoring in STEM at CMN by 50%; 2.) By September 2015, to increase the retention rate of CMN¡¦s STEM cohorts by a minimum of 25%; 3.) By September 2015, to develop a two-year Multimedia Programming degree.
Project Plans: In order to achieve this project CMN has established several strategies.
?h
Objective 1
?X
Develop and implement bridge program: Main activities include coordinating bridge activities, family math and science nights, AISES chapter development, campus exposure, and high school level math and science competitions.
?h
Objective 2
?X
Infuse culture into STEM courses: Key activities include faculty training, development, revision, piloting, and assessment of courses, and incorporation of culturally relevant projects and site visits in STEM courses.
?X
Develop and maintain a STEM resource room: Main activities include hiring a STEM resource demonstration coordination, purchasing equipment and supplies for resource room, coordination of workshops, hand-on tutoring, mentoring, project assistance, demonstrations and speakers.
?X
Develop and Implment a STEM scholars program at the Oneida campus: Major activities include setting up the program at that campus, implementing prescribed interventions, coordinating cohort activities, and providing stipends for participation.
?X
Coordinate STEM extracurricular activities: Major activities include chapter support, research and internship development and implementation, and student travel to major research labs and national chapter events.
?h
Objective 3
?X
Develop a Multimedia programming degree: Major activities include curriculum and course development, piloting of those courses, revising as necessary, and working on essential articulation agreements.